Travel to Attend the Second International Conference on Chemical Engineering Education in Cambridge, England, April 14-16, 1987

PROJECT DESCRIPTION This project is an International Travel grant for an individual. The principal investigator plans to attend the upcoming Second International Conference on Chemical Engineering Education in Cambridge, England on April 14-16, 1987. He has been invited by the Institution of Chemical Engineers (on behalf of the European Federation of the Chemical Engineering Working Party on Chemical Engineering Education) to present a plenary lecture in the session on "Initiatives in Engineering Education." His lecture is entitled "Scaleup and Safety--Linked Initiatives." The PI has been active in research and educational activities relative to this meeting. On this trip, he is also planning to visit the University College of University of London, University of Cambridge, and Imperial College of University of London. A report will be prepared by the PI of the major findings at the Conference and University site visits. JUSTIFICATION Attendance at this Conference will be beneficial to the United States. A record of recent initiatives in Engineering Education in Europe and Asia will be made available by the PI; the information will subsequently be distributed to USA engineering schools. Dr. Kabel was invited to attend by the top management of the American Institute of Chemical Engineering, as well as the European hosts. RECOMMENDATION Support for airfare on a USA carrier is recommended at the level of $860.00.